Assembly and Function of the Cofactors of Fumarate Reductase from Escherichia coli

The proposed project is a direct continuation of studies conducted under NSF project DMB 8715560, building on and exploiting findings in that investigation. Fumarate reductase from Escherichia coli will be used as a model system for studies on assembly and function of protein prosthetic groups. This enzyme complex is particularly well suited for these studies in that it is easily genetically manipulated, the complex is stable and can be amplified to high levels for isolation and analysis, and it is similar in structure and function to succinate dehydrogenase which is a key component of the mitochondrial electron transport chain. In particular the investigations will provide information on assembly and function of covalently bound flavins, the different iron-sulfur clusters of the enzyme (ı2Fe-2S!, ı4Fe-4S!, ı3Fe-4S!) and the sites in the membrane-intrinsic domain that interact with quinones. The approaches of biochemistry, molecular biology, and biophysics will be used to investigate these questions. Site-directed mutagenesis of specific amino acid residues will be performed and the resulting mutant enzyme complexes analyzed for enzymatic function, and assembly of iron-sulfur clusters will be monitored by a combination of EPR, magnetic CD, ENDOR, and Mossbauer spectroscopies. This research will contribute to our understanding of how complex flavoprotein oxidoreductases assemble into functional membrane protein complexes and thus help elucidate the path of electron transport through such proteins.